Modernization of the Undergraduate Geotechnical Engineering Laboratory.

Under this project, Bucknell University will modernize its geotechnical laboratory within the civil engineering department. Equipment will be obtained to measure the shear strength of soil and rock in triaxial shear. Triaxial control panels and triaxial cells will allow the students to measure and control the externally applied total stresses, the pore water pressure, specimen volume change and the stress path. Consolidometers will be used to measure the consolidation properties including preconsolidation pressures and the time rate of consolidation of soils. This laboratory modernization will permit students to conduct laboratory tests on a wide range of soil types with up-to-date equipment.